Collaborative Research: Prairie Analysis Seminar 2009-2011

This award will provide support to defray expenses of researchers participating in the three consecutive meetings of Prairie Analysis Seminar in 2009, 2010 and 2011 at Kansas State University and University of Kansas. PIs and the co-PIs of this collaborate proposal have received previous awards for organizing five out of totally eight editions of the Prairie Analysis Seminar. Support will be provided to participants who do not currently hold NSF awards, with exceptions made for some plenary speakers. It is understood that much of the funding will be directed to graduate students, postdocs, and junior faculty but that certain senior participants will be funded as well.

The programs of each meeting will feature invited lectures and a number of contributed talks. The principal objective of this meeting is to introduce young mathematicians to the field, as well as to provide a forum for presentation of the current state of the art of the theory. The organizers intend to actively involve young mathematicians, female mathematicians, and mathematicians from other under-represented groups, to which much of the funding will be directed. Graduate students are expected to participate at the meeting.